Computer Laboratory Enhancement of Biological and Physical Science Courses

The Science Department of Iowa Lakes Community College is upgrading and revising curricula of introductory physical and biological science courses and of the inorganic and organic chemistry courses through purchase of computer hardware, software and computer-supported instrumentation. Student learning and lab efficiency are increased by utilization of computers within the lab setting to simulate costly equipment and through use of computer-supported instrumentation to provide hands-on experience. Faculty are revising the lab experiments to include these new technologies.